The Dynamics of Short-Wavelength Spilling Breakers

9818910
Duncan

The project is for a laboratory study of breaking waves. The breaker will be generated by side-bank instability technique. The goal is to understand the dynamics of breaking waves, and to assess effects of breaker wavelength, surfactants and wind on the sub-surface flow fields. Three areas of inquiry are proposed: (1) study the breaking mechanism over a wide range of breaker wavelenghts; (2) study effects of surfactants on breaking waves; (3) study effects of wind on breakers.